Infrastructure improvements to support invertebrate research at The Field Museum

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This project involves the renovation of invertebrate research areas within the Field Museum of Natural History (FMNH). The renovated Invertebrate Research Facility will support invertebrate biodiversity, evolutionary, phylogenetic, and conservation research and research training conducted by individuals, groups and teams. The renovated facility will consist of an area designated the Collaborative Invertebrate Laboratories, an area designated the Insect Systematics and Training Unit, and an area that will be the Molluscan and Marine Invertebrate Units.

The Field Museum is one of the largest natural history museums in the world. It is a not-for-profit independent research museum which accumulates and disseminates knowledge about the Earth's biological and cultural diversity. The research side of the museum supports investigations by a tenured/tenure-track faculty, resident graduate students and postdoctoral fellows, and national and international associated researchers. The Museum maintains world-renowned research collections in the fields of Anthropology, Zoology, Botany, and Geology. The Museum makes research specimens available on loan to any bona fide researcher associated with an academic institution in any country of the world.

The proposed renovations will facilitate the use of several million invertebrate specimens in research and research training in invertebrate zoology, evolutionary biology, phylogenetic analysis, and conservation biology carried out by scientists from both the Field Museum and external institutions. The infrastructure improvements will increase the efficiency of research projects involving the project's senior personnel, their students, post-docs, and other collaborators. The shared, centralized facility will promote collaborations and the exchange of techniques and ideas across research groups. Trainees will be exposed to a variety of research as well as to state-of-the-art equipment and methods for morphological analysis. The renovations will improve the Museum's capacity to accommodate and train individuals with certain kinds of disabilities. The renovation will also facilitate the continuation of the expansion of FMNH's freely internet-accessible collection databases, which help to make its specimen holdings available for research, educational, and conservation activities around the world.